Students and Scientists: Together Advancing Science Knowledge

This project will develop four new instructional units for GLOBE: a middle and high school unit on Urban Atmosphere and a middle and high school unit on Coastal Ecosystems. These units will meet the needs of school systems for standards-based instructional units that also meet the needs of the research community for data from regions undergoing high rates of environmental change. In addition, the project will develop an on-line tool, "Assemble an Inquiry," that will coach educators through the process of developing their own customized, standards-based units with the existing GLOBE materials.